SBIR Phase I: BVDV Detection by Novel Micropost Technology

This SBIR Phase I project will develop an on-board biosensor platform based upon micropost technology that will detect viral pathogens in livestock. The system relies upon an immuno-detection system to identify the presence of the pathogen. The Phase I project will establish proof of concept both in the laboratory and with infected livestock to demonstrate the function of the technology in response to a single selected pathogen.

The broader/commercial impact of the project will be to provide a new means of viral monitoring that ideally would provide earlier detection of viral infection and is more practical and less invasive as compared to blood or tissue sampling.